Program in Geometry of String Theory

Abstract

Award: DMS-0443699
Principal Investigator: Mikhail Kapranov

We propose to run a year-long program at the Fields Institute on
the subject of ``Geometry of string theory''. The program will
be devoted to mathematical subjects motivated by string theory,
and to recent developments in string theory and related physical
fields which are of strong mathematical interest. On the
mathematical side, the aim is to foster interaction between such
areas of mathematics as derived categories, elliptic cohomology,
geometric Langlands correspondence, quantum cohomology,
differential geometry varieties with special holonomy and of
special Lagrangian varieties. On the more physical side, the aim
is to foster new progress in the continuing drive towards
understanding the foundations of string/M-theory, and in the
wealth of new ideas involving D-branes, BPS states and various
dualities which are of great importance to mathematical subjects
such as algebraic geometry.

The overall goal of the program is to advance our understanding
of the fundamental questions of physics of the
microworld. Probably the most promising application of quantum
physics contemplated nowadays is the Quantum Computing Project
which can potentially lead to creation of computers whose power
exceeds the present-day limits by many orders of magnitude. This
direction is a part of the proposed activitie and we plan to have
a distinguished lecture series (the Blyth Lectures) devoted to
the subject. This program represents an excellent opportunity
for young scholars to experience a high-level interdisciplinary
collaboration. In particular, it is going to be a very important
training ground for young American scientists.